A Workshop on Geo-environmental Issues Facing the Americas to be held in Mayaguez, Puerto Rico on September, 1994

9408553 Pumarada The objectives of this workshop organized by the CoHemis Center of University of Puerto Rico Rico-Mayaguez(UPR-M) with collaboration of Georgia Institute of Technology's Center for Sustainable Technologies, and the UPR-M Civil Infrastructure Research Center, and Puerto Rico Industrial Development Company is to emphasize: 1. design, remediation and sustainable technologies; 2. geosynthetics in geo-environment engineering; 3. computational and numerical methods including Waste/contaminant transport, GIS/GPS utilization, and risk assessment. Improvement in geo-environmental mitigation planning would benefit the regio through enhanced quality of life, improved sustainable development, and better outlook for society. ***